Quantum Theories of Gravity and Spacetime

This research in theoretical gravitational physics concerns the problem of quantum gravity and is directed primarily at the question "is the usual continuum model of spacetime appropriate in a theory uniting quantum physics and gravitation and, if not, by what should it be replaced?" Several facets of this subject will be investigated by Dr. Jacobson: 1) application of the partial solution of the constraint problem in general relativity to the standard recipe for quantization of gravity; 2) the compatibility of black hole radiation with different assumptions about short distance spacetime structure; 3) the problem of defining cutoff quantum field theory in time-dependent spacetime geometries; 4) constraining relations in causal networks and classification of allowed network structures; 5) the role of closed timelike curves in 2 + 1 dimensional quantum gravity; 6) the problem of interpreting the formalism of quantum gravity in the absence of an external notion of time.